Research and Education in Several Complex Variables

The d-bar-Neumann problem may be viewed as the study of the solution
of the inhomogeneous Cauchy-Riemann equations having minimal
L^2-norm. After Kohn's solution of the problem on strictly
Pseudo-convex domains, important advances in the L^2-Sobolev theory
included the work of Hormander on L^2-estimates, D'Angelo and Catlin
on finite type and subellipticity, Boas and the PI on global
regularity on domains of infinite type, and Kiselman, Barrett, and
Christ on irregularity on worm domains. However, characterizing
global regularity remains a fundamental open problem. Likewise, quite
general sufficient conditions are known for compactness of the
d-bar-Neumann operator, but a characterization on general
pseudo-convex domains in terms of boundary data remains elusive. These
long term goals represent two thrusts of this project. The PI
recently observed intriguing links between sufficient conditions for
regularity properties of the d-bar-Neumann operator and sufficient
conditions for the existence of a Stein neighborhood basis for the
closure of the domain. Investigating to what extent regularity
properties of the d-bar-Neumann operator such as compactness imply
the existence of a Stein neighborhood basis of the closure of the
domain is a third thrust of this project. During this project, the PI
will supervise several postdoctoral researchers and several graduate
students. He will co-organize a special semester at the Erwin
Schrodinger International Institute for Mathematical Physics
dedicated to topics investigated in this project, and he will give a
lecture course within the Institute's Senior Fellows program
introducing these topics to graduate students and junior researchers.

The study of analysis in several complex variables can be motivated by
the centrality of the subject within mathematics as well as through a
direct appeal to its usefulness. For example, one of the basic laws
of nature, causality, when transcribed via a mathematical device
called Fourier transform, leads immediately to analytic functions of
several (in this case, four) complex variables. The PI has shown that
some of the problems to be studied in this project have intimate
connections to issues emanating from quantum mechanics. The central
object of study in this project, the Cauchy-Riemann equations, form a
model problem for a subject central to physics and engineering
(partial differential equations). Finally, the project will
contribute significantly to the development of human resources
through training of highly qualified personnel at the postdoctoral and
graduate levels, respectively.